Collaborative Research: Trajectories and spatial distributions of diatoms at dissipation scales of turbulence

Turbulence is ubiquitous and important in the upper mixed layer where phytoplankton reside. On scales relevant to individual cells and colonies, dissipating turbulence erodes molecular diffusive boundary layers around cells and affects probabilities of encounter critical for processes such as predator-prey interactions and aggregation. Superimposed on ambient fluid motion are local motions of cells due to tumbling and sinking. How these motions interact with ambient turbulence is not well understood, particularly for the morphologically diverse, non-motile diatoms that dominate primary productivity. Recent studies show that still-water sinking velocities of particles and turbulent diffusive motions of fluids cannot simply be added together to solve for particle motions; for negatively and nearly neutrally buoyant particles, high turbulence intensity produces several times faster sinking and rising velocities than seen in still water. Atmospheric studies of water droplets in clouds have focused on inertial mechanisms of acceleration, but the review in this proposal suggests that--in the parameter space defined by the particle characteristics of diatoms--shape may be much more important than inertia in determining plankton-turbulence interactions. The investigators propose to study effects of turbulence on settling trajectories and resultant spatial distributions of diatoms. Employing a novel volumetric particle imager, they will obtain 3D Lagrangian trajectories of individual cells and chains of selected strains of diatoms under controlled turbulence. By targeting species of different morphologies and mechanical properties as well as cultures at different growth stages, new insights will be gained on how physical, morphological and physiological properties affect sinking speeds and trajectories of non-motile phytoplankton.

Intellectual Merit:
Sinking is an important life strategy of phytoplankton, and its interaction with ambient flows holds significant implications for the residence time of phytoplankton in the mixed layer and ultimately for phytoplankton productivity in the photic zone and fluxes of elements to the deeper ocean. This study challenges common views on mechanisms that cause phytoplankton sinking in the ocean and offers a mechanistic dissection of departures in turbulent sinking from Stokes settling. By targeting species of varied morphologies and mechanical properties, as well as cultures at different growth stages, new insights will be gained into how physical, morphological and physiological properties interact to determine sinking speeds and trajectories of non-motile phytoplankton, particularly in and near the vortices that dominate turbulent flows. Results from this study will also advance understanding of underlying spatial distributions of phytoplankton in the poorly resolved decimeter to millimeter domain, with abundant implications for the foraging fields of grazers and formation of particle aggregates.

Broader Impacts :
Wide arrays of problems involve particle motions in turbulence. Results from this study will apply to many aquatic environments and advance understanding of the behavior of non-spherical, low-inertia particles in turbulent flows, with applications to other fields such as atmospheric sciences and chemical engineering. This proposal will also advance the laboratory simulation of turbulence with a novel compromise among existing approaches that promises efficient simulation of dissipation-scale turbulence. The VoPI also provides more rapid and efficient identification and tracking of particles in turbulent flows than has been feasible with computer-intensive holography or particle-imaging velocimetry. The investigators propose a week-long workshop that will bring together biological oceanography and engineering graduate students and postdocs to explore the rich set of questions associated with microscale interactions of planktonic organisms with ambient flows, and approaches to address them. Two graduate students and two undergraduate students will be supported by the collaborative grant. Results from this study will be presented at national meetings, published in peer-reviewed journals and incorporated into graduate and undergraduate courses taught by the PIs.